Research Fellowships for Mathematics and Science Teachers

This project, sponsored by The Georgia Tech Research Corporation, with provide stipends for 19 high school teachers to do research in the summer with the Principal Investigators of NSF sponsored research projects. The teachers will be in the program for two years. The fields covered in these research programs include chemistry, mathematics, computer science and engineering. The teachers will participate in an orientation program and, in addition, project staff will help the teachers prepare lessons relating to the research to use in their classrooms.